"Industry/University Cooperative Research in the Re- engineering of Large Scale Software Systems"

Many organizations have found that they have high cost investments in software systems that are vital to their operations but which they cannot adapt to their current needs. Their ability to compete has become limited by their existing software. Improved methodologies for re-engineering large software systems would have major economic benefits. Typical software re-engineering tasks include: . re-structuring a system of 'old code' to conform to modern software engineering standards . porting from one computer, operating system, programming language or data-base to another . enhancing a system to add major new functions The prime focus of the research will be to define methodologies for understanding persistent data in large transaction processing software systems. An understanding of the purpose and utilization of the data that a system stores for relatively long periods of time is a key to many kinds of software modification. The principal investigator will work with a company that has extensive practical experience in the design, construction and modification of real-world transaction processing systems. If possible, case studies will be made of a small number of actual re-engineering activities to clarify needs and to evaluate the applicability of the methodologies developed. The principal investigator is well-qualified to pursue this research and a grant is highly recommended.